I Corps: A Psychologically-Informed Contact Tracing Tool

The broader impact/commercial potential of this I-Corps project is the development of an interactive, online platform that conducts patient-led, interviewer-free, contact tracing interviews (CTI). Contact tracing is a well-established public health measure used to contain the spread of contagious diseases such as HIV, Ebola, and COVID. In its current state, interviewer-led contact tracing is costly, inefficient, and results in the omission of potentially infectious contacts, allowing the continued spread of disease. The proposed technology takes well-established, empirically validated psychological approaches from cognitive and social psychology that bolster recall and applies them to public health. This new application of existing psychological approaches to CTIs may increase interview yield by 50%. In addition, the proposed tool may be used to span multiple infectious diseases and may quickly conform to the parameters of any infectious disease and any language.

This I-Corps project is based on the development of a digital platform that applies cognitive psychological techniques to improve contact tracing to combat the spread of contagious disease. The proposed digital platform removes the interviewer from the contact tracing interview without a loss of efficiency. Self-led interviews empower patients to choose the time, place, and pace of the interview. The result is fewer contacts forgotten, rapid results, and cost savings as the technology facilitates data collection through technologically driven distribution channels without hiring, training, and compensating contact tracers. In addition, the proposed platform also uses natural language processing and artificial intelligence to aggregate the data and detect patterns in contagious outbreaks. Prior research reveals that the psychological methods utilized in the proposed technology help increase the amount of information that interviewees may recall, thus helping better inform decision-making by businesses and government entities.